Research in Gravitational and Relativistic Physics

The study of relativistic theories of fluids will be analyzed in detail, including its fundamental properties regarding stability, causality, and hyperbolicity. Studies in the area of relativistic dissipative fluids will examine the connection between hyperbolicity in a fluid theory and the existence of an upper limit for continuous shock solutions. Gravitational effects on the vacuum decay rate, and gravitational effects caused by vacuum decay, will also be studied. The interior structure of charged black holes will be more accurately modeled by including the effects of charged particle production. This investigation will help clarify whether black hole interiors contain all-encompassing crushing singularities, or whether matter could conceivably escape destruction and emerge into "another" universe.